Enabling Widespread Telecollaboration

9454704 Feldman Our understanding of excellence in science learning has changed dramatically in the past decades. We now know that the concepts, skills, and excitement of science are most effectively learned through students' direct experience in real science activities- collaborating to plan an experiment, collecting data, organizing and representing the data, and interpreting the data. Students learn complex problem-solving skills by working with peers and mentors to plan and carry out an investigation of a real science problem. Rather than textbooks and lab exercises, this approach emphasizes authentic contexts for learning, that is, doing science. To implement this approach, students need access to resources outside their classroom-access to data beyond what they can collect themselves, and access to scientists or other experts as they try to make sense of their data. Teachers need access to experts, other teachers, and additional resources as they grapple with a new way of teaching science. The use of computers connected through wide-area networks provides an effective way to access these resources for teachers and students, and enables students and teachers to work closely with others who are geographically remote. TERC proposes to create a paradigm for education, which we call telecollaboration, that will build on the model of Network Science created in Alice/Collaborative Inquiry Testbed. Telecollaboration reflects a major change in our use of computers and telecommunications in education, and enables teachers and students to engage actively in high quality teaching and learning. We will create a Testbed through which we'll identify and encourage a range of telecollaborative projects that will meet the needs of educators, support educational reform, and create new, scalable classes of network collaboration. While the paradigm we are developing is applicable across the curriculum, the Testbed will focus on telecollaboratives with an emphasis on science and mathematics.